Vision Through Rain and Snow

Bad weather can severely limit the usefulness of computer vision in
the outdoors. The algorithms (segmentation, tracking, recognition,
etc.) used in today's vision systems are not equipped to handle the
adverse effects of weather. For outdoor vision systems to perform well
in all conditions, they must explicitly account for the diverse
effects of weather. The visual effects produced by different weather
conditions can be broadly classified into two categories: steady (fog,
mist and haze) and dynamic (rain, hail and snow). This research
project is devoted to the modeling and analysis of dynamic weather
effects. The first stage of the study is to develop compact and yet
descriptive photometric and geometric models of raindrops and
snowflakes. These models will be used to develop advanced models for
the dynamical and statistical properties of rain and snow. Using
these models, efficient and robust algorithms will be developed for
detecting and removing rain and snow from videos. The proposed models
will also be used to develop algorithms for fast and realistic
rendering of rain and snow. In addition, the developed models will be
used to design and implement real-time rain and snow gauges based on
video cameras. Such gauges will be very inexpensive compared to ones
currently used in meteorological sciences, and yet will provide high
accuracy in the estimation of weather parameters.

The results of the proposed research are anticipated to have a broad
and tangible impact on both research and education. From the
perspective of research, the results are expected to impact the
robustness of outdoor vision systems and the realism that computer
graphics can achieve. The models, algorithms and databases developed
during the project will be broadly disseminated in a timely
fashion. With regards to education, the PI is currently developing a
course titled ``Computer Vision through the Atmosphere,'' and the
results of this investigation will contribute significantly to the
content of the course.